SGER: The Multidimensional Model of Racial Identity

This Small Grant for Exploratory Research (SGER) addresses a major shortcoming in the research literature on African American racial identity. Past research has not fully addressed the psychological processes through which a person's racial identity influences social behavior and the interpretation of social events. The PI has developed a multidimensional model of racial identity as a conceptual framework to guide future research in this area. This exploratory research will examine three questions. First, how does racial ideology influence a person's interpretation of racially-ambiguous events? Second, how does race salience influence the interpretation of racial prejudice? Third, how does racial centrality influence performance on verbal tasks? An important goal of the research is to gain deeper understanding of stereotypes and prejudice.